Rocky Mountain Geography Teachers' Leadership Network

This Nation needs more and better geographic education, and it needs teachers and systems well prepared to deliver that education. This Leadership Activities Project responds to these needs. Intensive summer workshops will offer the development of special skills for school district teams consisting of curriculum specialists, master geography teachers, and inexperienced geography teachers. These teams will design, pilot, and evaluate instructional materials that are based upon the most recent developments in geography education. Subsequently, the teams will meet throughout the academic year in special workshops and the staff of the project will visit the participating school districts, visiting classrooms and providing support to the local team members. In the process, teaching modules, syllabi, and in-service geography teacher education programs will be developed, used in school classrooms with students, and evaluated. These programs will be based upon the Guideline for Geographic Education prepared by the Association of American Geographers and the National Council for Geographic Education in 1984. Both the instructional materials and the teacher education models will be evaluated throughout this project. This project builds upon an NSF-supported project that was successfully conducted in the summer of 1985. This two-year project will work with larger numbers of participants, ultimately reaching 30 middle/junior high school teachers and 60 high school teachers. The project will create a Great Plains-Rocky Mountain network that is linked to the Geographic Education National Implementation Project. It will contribute to the growth of a regional network of geography educators who will motivate, support, and learn from each other. School districts will share some of the support costs.